CISE Research Instrumentation

Multiprocessor System equipment will be provided for researchers at Univ of Mass for research in the Department of Computer and Information Science and Computer Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of time-critical systems, controlled processes, and dynamic control of resources organized in a hierarchical fashion.